Fatigue Crack Initiation Mechanisms in Nickel Aluminides

Intermetallic materials have a great potential as a high temperature structural material. A study of fatigue crack initiation mechanisms in single crystals of Ni3Al and NiAl intermetallics is proposed. These two compounds represent two important superlattice types, viz., L12 (Ni3Al) and B2 (NiAl). The fatigue crack initiation behavior in these intermetallics will be studies as a function of orientation, test temperature, and environment. A vacancy-induced crack initiation model for Ni3Al will be tested.